CAREER: Critical Issues in Quantum Gravity

Research in quantum gravity, a branch of theoretical physics, will focus on the evaporation of black holes, the microscopic structure of space and time, and the big bang. The importance of quantum gravity research, in which one tries to construct a theory of the force of gravity which is compatible both with relativity and with quantum mechanics, is that it opens a window to the most fundamental levels of physical reality. If there is ever to be a revolution comparable to the discoveries of relativity and quantum mechanics, the area of quantum gravity is where it may well happen. Work in physics education will concern introductory mechanics and Einstein's relativity. Dorm room experiments for mechanics will be designed using high quality but unintimidating equipment such as Mattel's `micro Hot Wheels' toy cars. This informal and interactive approach is essential to students' becoming comfortable with physics and building physics intuition. Regarding relativity, a course for non-physicists will be introduced. Because Einstein's `theory of relativity' is actually a well established experimental fact, it is important that any student have the opportunity to share this new understanding of space and time.